New Techniques for Audio, Image, and Video Compression

NCR-9523767 Pearlman, William A. Rensselaer Polytechnic Institute New Techniques for Audio, Image, and Video Compression The goal of this research is to investigate more effective techniques for digital audio, image, and video data compression. For audio, the intention is to employ more efficient entropy-constrained, conditional and unconditional, quantization in the coding of the critical subbands of the MPEG audio standard. The dependence of the subbands is next exploited using set partitioning in hierarchical trees (SPIHT) as done originally in embedded, wavelet, zerotree coding of images. The resulting embedded coding allows delivery of different qualities of service with a single compressed bit stream. A newly developed SPIHT procedure, which obtained probably the best-to-date monochrome, still image results (lossy or lossless) and with extremely fast encoding and decoding, is utilized for audio and also for color image and video coding. The extremely fast execution of the SPIHT coding procedure makes it especially suitable for video, where a requirement of real-time coding becomes an insurmountable obstacle for other procedures. Both lossy and lossless coding are investigated, as they fit naturally into the SPIHT framework. It is expected that the results will surpass those of existing standard systems, which do not produce naturally embedded code, and are far more complex operationally and hence slower in execution. Other investigations involve the use of information theoretic criteria to create optimal adaptive subband compositions and the use of trellis coded quantization (TCQ) in block discrete cosine transform (DCT) and lapped orthogonal transform (LOT) coding. The adaptive subband decompositions pay off in better compression for a given subband coding technique. TCQ coding brings an efficient, but complex technique operating on transform blocks, which preserve regional characteristics of the image. Finally, the SPIHT coding algorithm pr ovokes several theoretical questions which are addressed. Among them are the minimal information rates to determine octave ranges of random variables and convey subset partition numbers and element numbers, and the mutual information between significant bits of dependent random variables and between their respective residual bits. Satisfactory answers to these questions will lead to more efficient coding techniques with decreased complexity.